The 2011-2012 National Network of Sonia Kovalevsky Mathematics Days

The goals of the current project are to (1) attract middle school and high school girls to the study of mathematics and to nurture and support their interest in this discipline; (2) give the middle school and high school female participants the chance to interact with college level women pursuing science, technology, engineering and mathematics (STEM) degrees, women faculty in STEM disciplines, and professional women from industry, government or the financial sector; and (3) assist teachers by providing new ideas for teaching mathematics to girls and underrepresented minorities. These will be pursued through the activities of the national network of Sonia Kovalevsky Mathematics Days and the participation of the Association for Women in Mathematics at the 2012 USA Science and Engineering Festival.

The proposed activities will include a projected total of 3,050 middle school and high school girls (1,250 middle school and high school girls will be served by the Sonia Kovalevsky Days Program and the rest will be the participants at the USA Science and Engineering Festival) and 150 mathematics teachers in the growing national mentoring network involving women faculty, and graduate, undergraduate, high school and middle school women students interested in mathematics. These activities will help develop awareness of job opportunities and possible career paths for middle school and high school women students interested in mathematics and they will attract women to the study of mathematics by providing women student participants with competent and engaging mathematical instruction intertwined with strong mentorship by undergraduate and graduate women students in STEM disciplines who are in position of scientific leadership at the college level.